Track 1, GK-12: Pass Me the Salt: Extending the Research Training Tower to Pre-College Students

This proposal describes a Track 1 project developed by Wichita State University to bring biology research into the public high schools in Wichita. The project will target four graduate fellows (GF) and eight teachers. The proposer plans to generate new lesson plans and lab activities in molecular biology, increase students' understanding of research science and the college experience, provide GF with opportunities to enhance outreach skills, bring students into research labs via videoconferencing, and help teachers meet the goals of NCLB. To accomplish these goals, the PIs intend to use research, place research-quality equipment into high school classrooms, and supply teachers with lessons and training on how to use the equipment.